Construction of an Undulator-Based Synchrotron X-Ray Scattering Facility for Materials Research on Complex Fluids

Funds from the Academic Research Infrastructure Program will be used in the construction and implementation of an undulator-based x-ray beamline at the Advanced Photon Source. The beamline, when completed, will include three fully instrumented end stations optimized for grazing- incidence x-ray scattering from surfaces/interfaces, high resolution delta-Q-resolution x-ray scattering, and small- angle x-ray scattering. This x-ray scattering facility will be utilized by a consortium of scientists from U. Pennsylvania, Princeton U., U. C. Santa Barbara, U. Tennessee, Oak Ridge Natl. Lab., Brookhaven Natl. Lab., Los Alamos Natl. Lab., and the Exxon Corp. Res. Lab., all of whom are members of the "Complex Materials Collaborative Access Team" (CMCAT). Among the groups studying complex fluids there are 14 senior scientists, 8-10 postdoctorals, and 9-12 graduate students. The complex fluids under study by this group relate to self-assembled macromolecular systems at interfaces and/or in bulk and include colloidal, miscellar, polymer and biomolecular systems. Some of the research topics being studied include: lipid and surfactant mesophases; block copolymer melts and solutions; surfactant/polymer association complexes; doped conjugated polymers; fullerenes ("buckyballs"); ultrathin films and biomolecular materials; heat proof proteins; multilayer biomembrane ordered hydro-gels; protein-polymer complexation; in-situ diffraction of flow and confinement induced complex fluid structures; electrochemistry; liquid surfaces. Funds will be employed for the construction of an x-ray beamline to be located at the Advanced Photon Source at Argonne National Lab. which will feature three fully equipped end stations. The beamline will be utilized by a consortium of scientists from universities, government laboratories, and an industrial laboratory for the study of complex materials. Specific x-ray scattering studies will be done on complex fluids, namely colloidal, micellar, polymer and biomolecular systems.